CAREER: Impact of Physiological State nd Macro-Nutrient Ratio on Microbial Surface Thermodynamics

Strevett 9733969 A quantitative understanding of microbial migration in geological formations is critical to predict the dissemination of microbes in the environment and to evaluate the efficacy of microbially mediated in situ pollutant degradation. The key event that retards the movement of micoorganisms in the saturated zone is their interaction with the matrix surfaces, which may result in adhesion. This interaction is determined by the surface thermodynamics of the microorganism and the matrix. This research is designed to measure thermodynamic properties of cell surfaces for selected subsurface bacterial genera at different physiological states, electron donor/acceptor ratios and carbon/nitrogen ratios. The bacteria selected for this study include Escherichia coli, Pseudomonas fluorescens, Bacillus subtilis, Lactobacillus casei and Staphylococcus aureus. It is the goal of this research to provide a comprehensive and accurate quantification of the dependence of surface thermodynamics on bacterial physiological state, electron donor/acceptor ratio and carbon/nitrogen ratio. A mechanistically-based model will be developed for microbial transport; the model will account for micro scale hydrodynamics, individual surface thermodynamic interactions between cell surface and the grains, including their dependence on physiological state of the microorganism, and Brownian diffusion. The resulting model will provide a tool for evaluating and predicting microbial transport in porous geological formations with greater certainty than is currently possible. The objectives of the educational plan are to: 1) increase opportunities for physically impaired students in engineering and science and 2) provide a forum to bring research into the classroom and teaching into the laboratory. Targeted recruitment and retention strategies at the undergraduate and graduate levels will create visibility for engineering and science disciplines to physically impaired students throu gh guest lectures and summer research scholarships. A support system for these students will include mentoring programs, financial support and appropriate laboratory facilities. The second objective will be met through multidisciplinary laboratory oriented courses to provide an opportunity for cooperative learning through the incorporation of fundamental principles, applied science and real-world problem-solving. ***